DNA Synthesis in Rice Endosperm

The DNA content of rice endosperm nuclei, instead of remaining at the expected 3C level, increases to higher values. The questions that are being asked are the following. What is the pattern of DNA synthesis and accumulation in endosperm nuclei during the entire course of development of this tissue? If the endosperm nuclei exhibits a modal increase in DNA content, is this referable to cell fusion, polyploidy, polyteny, endoreduplication or selective gene amplification? Is there evidence for the under.representation of certain genes during the ontogeny of the endosperm? Autoradiographic (including DNA fiber autoradiography) and Feulgen microspectrophotometic methods will be used to study the changing pattern of DNA synthesis and accumulation. The reassociation kinetics of endosperm DNA with leaf or embryo DNA and with cloned genes will be employed to establish whether the high DNA content is due to endoreduplication or gene amplification. The kinetics of hybridization between endosperm DNA and rRNA will be analyzed to determine whether the rRNA genes are under.replicated during endosperm development.